Research Initiation: Knowledge-Based Systems for Kinematic Structural Synthesis

New analysis techniques developed recently have eliminated much of the guess work and creative thinking required in mechanism synthesis. They have placed the synthesis process on a more analytical foundation. This project further enhances that analytical base by incorporating knowledge based systems in the conceptual design of mechanisms. Use of such systems is a more systematic approach to mechanism design than other approaches currently in vogue. Although the project addresses a small class of mechanisms initially, its ultimate application will be to a broad spectrum of mechanisms from small machines to large deployable space structures.